Concept Database: A Design Information System for Concurrent Engineering with Application to Mechatronics Design

This is a program of research, development and technology transfer of a multimedia conceptual design aid, the Concept Database. The Concept Database provides design teams with easy access to information with regard to life cycle design issues for competing design concepts and access to relevant past designs and other information databases of the engineering enterprise. The Concept Database methodology provides "smart navigation" through a hypermedia database of linked design concepts. Such a system expands the amount of information available to the designer and other members of the product development team in a manner that is selective, using search techniques that are based on heuristic, deterministic, and decision-analytic methods. Normative design methodologies are used to develop the structure of the search in order to guarantee that the full range of life cycle issues are considered and provides a framework for making design decisions that take account of multiple and often conflicting life cycle objectives. Mechatronic design is the domain of the first prototype system. Mechatronic design is an area of key strategic importance, playing an important role in the design of consumer products, computer peripherals, automation systems, and aerospace and defense systems. It is also an area where off-the-shelf component selection is essential, and one in which the expertise crosses departmental boundaries; electronic design, mechanical design, interface design, supplier coordination, packaging, logistics and support are all involved in the realization of a good mechatronic system design.